REU SITE: Research Experiences for Undergraduates at the University of Virginia

The excellent research facilities, the dedicated teaching and research faculty, and research staff and the commitment to higher education by the State establishes the University of Virginia in Charlottesville as an ideal setting for an REU Site. This program will continue with 16 undergraduate students with approximately half from U Va and the other half from other institutions. Projects cover a broad range of experimental research including nuclear and high energy physics, atomic, molecular, condensed matter and biological physics providing an opportunity for students with a wide range of interests. In particular, students will learn about the structure of light nuclei, electron and proton scattering from nuclei, momentum analysis with magnetic spectrometers, scintillator and surface barrier particle detectors, gas handling systems for accelerators, digital and analog electronics, computer hardware and software, ultra-low temperature, adiabatic demagnetization, ultra high- vacuum techniques, studies of gas adsorption on graphite, laser spectroscopy techniques for the study of molecules and atoms interacting with external fields, x-ray diffraction from macromolecules, hyperthermia studies of deep seated brain tumors, optical absorption studies of hemeproteins and gravitational phenomena. Students will participate over a ten week period in the summer and U Va students will continue throughout the academic year.